CAREER: Protecting Privacy in Untrusted Environments

CAREER: Protecting Privacy in Untrusted Environments
----------------------------------------------------
PI: Vitaly Shmatikov (The University of Texas at Austin)

Information about individuals and organizations is increasingly collected
in massive databases, sent over public networks and shared across
organizational boundaries. This presents serious threats to privacy:
even if individual pieces of data are cryptographically protected,
sensitive information may still leak out due to mismatches between
privacy policies of different components.

This project aims to develop tools and techniques for protecting privacy
of sensitive data, focusing on three main research thrusts. The first
thrust is protection of public databases containing individual information
such as medical records, transactions, and preferences. This includes
design of provably secure methods for enforcing access policies directly
in published data, development of analysis tools for finding privacy
vulnerabilities, and evaluation on real-world data. The second thrust
is design and implementation of formal methods for checking privacy
policy compliance in order to ensure that data processing applications
do not violate the stated privacy policies of the enteprise. The third
thrust is development of new methods for analyzing privacy-preserving
communication networks.

Protecting data privacy is important not only for individuals, but
also for businesses and organizations that deal with individual data.
New technologies developed as part of this project will help detect
potential privacy violations and enforce privacy policies. They will
enable applications dealing with sensitive personal and organizational
data to be executed in open computing environments and support many
socially important tasks such as multi-institution medical trials that
do not violate patients' privacy and collaborative analysis of Internet
security threats.